Testing an Integrated Structural-Cognitive Theory of Collective Action

SES-1330559
Steven Pfaff
Ross Matsueda
University of Washington

Social scientists have long sought to explain why participation in collective action (CA) is so variable. Why, even when the members of a population have widespread, severe grievances and a latent demand for a solution, is concerted action aimed at redress an unusual event? Questions like this have inspired a number of productive and revealing research programs. In situations involving public goods, many research perspectives expect a free-rider problem to exist, whereby actors have a general preference to achieve the common good but clear incentives to not contribute to its provision. Because, under some conditions, individuals can be coerced or compensated to follow-through on their expected contributions, CA action can occur. Nonetheless, the implications for widespread, sustained and effective public-spirited action are pessimistic. But how warranted are these claims? If everyone is not only prone to free-riding but aware that others are too, how does mobilization ever occur? What are the micro- and macro-level factors that help overcome collective inaction? Why do aggrieved people respond to mobilization in great numbers in some instances but most often do not?

The investigators test a new synthetic structural-cognitive theory of CA by conducting a cross-national factorial survey (FS) on individual propensity to protest. This is approached by constructing a experiment which uses vignettes to study the propensity of students to engage in a walk-out against the imposition of tuition increases. The researchers have developed a web-based FS program using open-source LimeSurvey software and will conduct factorial surveys on the propensity to protest among students at the University of Washington in Seattle and at the University of Leipzig in Germany. The goals of the project are to (1) explore how individuals understand and respond to incentives; (2) estimate CA thresholds and examine non-linear ways in which they may operate in a population; and (3) disentangle invariant causal mechanisms producing collective action from socio-cultural differences in institutional and national context that may interact with these causal mechanisms.

Broader Impacts
This model of CA is applicable to a wide range of behaviors, including voluntarism, social movements, boycotts, demonstrations, and other forms of action. It will be able to shed light on which social structures facilitate mobilization and why some policy proposals are apt to provoke opposition. This knowledge can lead to greater attention to public responses in political life and to improved policy initiatives and administrative strategies. Methodologically, the investigators employ methods in rigorous ways that will influence future research on political action and other forms of collective behavior. The project will develop and make publically available an inexpensive, user-friendly, web-based FS program from open-source LimeSurvey software that can be widely adopted by social scientists. In addition to publishing study results, the project will result in novel, publically available data. The Co-PIs will incorporate research findings into both undergraduate and graduate teaching, and continue to make data available to other faculty and graduate student instructors teaching courses in theory, political sociology, movements and related courses. The Co-PIs are also participants in interdisciplinary centers (CSSS and CSDE) relevant to the project.